NSF Planning Grant

9628226 Klein This planning grant will conduct a feasibility study: (1) to determine the possibility of using CLAS test and questionaire data to assess the effects of the California SSI; and (2) to investigate the applicability of this approach for evaluation of systemic reform in other locations. Upon completion of the study, a written analysis will be submitted outlining the findings and offering various options for follow-up.